Disseminating Calculus in Context

A two-year project is under way to adapt and disseminate the Calculus in Context curriculum being taught at Hampshire, Mount Holyoke, and Smith Colleges. The group of mathematicians with experience with this curriculum is being substantially expanded through intensive workshops and materials are being prepared that will allow instructors in high schools, two-year colleges and four-year colleges and universities teach the course without special training. Evaluation of the efficacy of the approach and of the dissemination efforts are part of the project.